Techniques in Molecular Biology

This Young Scholars Project at Long Island University revolves around a course - Techniques in Molecular Biology - which is designed to expose high school students (11th and 12th graders) to the methodology used in Molecular Biology. The summer commuter class will emphasize student participation in basis experiments in Molecular Biology including isolation of chromosomal and plasmid DNA, enzymatic modification of DNA, screening of recombinant DNA clones, electrophoresis, microcomputer assisted analysis of data and electron microscopy of DNA. Laboratory experiments will be supplemented with lectures and discussions about the methodology employed, alternate techniques, data analysis, and application of the techniques to other disciplines. The course will also include discussions of the ethical aspects of research in Molecular Biology as well as career opportunities and academic requirements for careers in Molecular Biology. The class will visit other research institutions to discuss career opportunities with members of the Personnel Department. Follow-up activities include several after school meetings per month during the academic year to discuss assigned research papers and lectures by faculty on their research.